A Model for Studying Natural Phenomena Using Mt. St. Helens

Thirty outstanding secondary school science teachers, fifteen from middle schools and fifteen from high schools, will be selected from around the nation to participate in a two-week summer workshop. These teachers who have demonstrated potential leadership abilities in science education will study evolution, behavior, and unique hazards associated with the Cascade Range volcanoes in general, and Mt. St. Helens in particular. The comprehensive two week program will include formal classroom activities, discussions, computer simulations, video, and field work. Participants will develop instructional materials during and after the workshop suitable for use in their local setting. School districts will support their teachers by contributing money for materials and providing released time for the presentation of workshops to fellow teachers and members of the local community. A long term, comprehensive follow-up and evaluation program will feature involvement of participants administrators, members of the academic community in participant locales and project staff. This project brings together many elements of the science education community, namely, a set of experienced teachers, academic community, federal agency and private sector instructors, school district administrators and an exciting environment as the setting for the project.